CAREER: Decoding the Glue That Binds Us: A Unified Research Program Using Lattice QCD, Quantum Computing, and Machine Learning

Gluons are among the least understood fundamental particles and act as the "glue" that holds quarks together inside nucleons (protons and neutrons), which form atomic nuclei and nearly all visible matter in the universe. Despite being massless, gluons and their interactions are responsible for generating roughly 99% of the nucleon’s mass. Another outstanding question in modern physics is how gluon spin and orbital motion contribute to the nucleon’s spin. Addressing these questions requires understanding the complex dynamics of gluons within the nucleon. This project advances that understanding by combining large-scale scientific computing, quantum computing, and machine learning to uncover how gluons shape the mass, spin, and internal structure of matter. The research supports the scientific goals of the Electron-Ion Collider, a major U.S. experimental facility designed to reveal the structure of nucleons and nuclei with unprecedented precision. The project also strengthens computational science education by training students in advanced computing, artificial intelligence, and quantum information science. New educational resources, publicly available course materials, and partnerships with Brookhaven National Laboratory broaden participation in frontier physics research and help prepare a diverse scientific workforce for careers in science and technology.

The research integrates three complementary efforts. The first investigates the spatial and momentum distributions of gluons inside the proton using lattice Quantum Chromodynamics, a first-principles and the most rigorous nonperturbative approach for solving the theory of the strong interaction. These calculations provide insight into how gluons contribute to the proton's mass, spin, and three-dimensional structure. The second investigates how a photon can temporarily develop a quark-and-gluon structure during high-energy collisions. Understanding this structure improves the interpretation of experiments that use electromagnetic probe to study matter and provides new insight into the gluonic structure of the proton. The third develops quantum computing approaches for studying gluon entanglement and gluon saturation, a regime in which gluons become extremely dense and exhibit collective quantum behavior. Physics-informed machine learning provides interpretable frameworks that uncover mathematical structures and physically meaningful correlations encoded in first-principles lattice Quantum Chromodynamics calculations through generative models and symbolic inference. These approaches enhance the precision and predictive power of lattice calculations beyond what can be achieved from first-principles computations alone. Together, these activities establish new theoretical tools for understanding the fundamental structure of visible matter and advance the application of emerging computing technologies to problems in nuclear physics.